Acquisition of an Upgraded Departmental Minicomputer

The use of computers in modern chemistry departments is becoming more and more essential for the support of meaningful research at the cutting edge of the field. The acquisition of an upgraded departmental minicomputer for the Chemistry Department at the University of Massachusetts at Amherst will be supported by both the Chemistry Shared Instrumentation Program and the Instrumentation for Materials Research Program. The acquisition will enhance the following areas of chemistry: 1) Computational modeling of molecules with unusual electronic and chemical properties. 2) Studies on the electronic structure of hole-molecules and the electronic states of molecular defects in condensed media. 3) Comparison of experimental and theoretical quadrupole coupling data in molecules. 4) The dissociation dynamics of molecules on metal surfaces.